Quantitative Evaluation of Fluid Flow and Mass/Energy Transport During Contact Metamorphism: Continuing Studies of the Alta Stock Thermal Aureole Alta, Utah

The principal investigators will study the role of fluids in contact metamorphic environments by continuing their investigation of the Alta stock aureole, using integrated petrologic, isotopic, and numerical modeling techniques. They will attempt to answer questions concerning the processes of flow and mass transport, the physical/chemical properties of the metamorphic aquifer, and the effects on patterns of flow and extent of fluid-rock interaction. This investigation will be an important contribution to our understanding of the physical and chemical dynamics of rocks around a cooling pluton.